A Comprehensive and Collaborative Program to Increase the Number of Well-Prepared Minority Mathematics and Science Teachers

9353610 McBay Economic and social trends have greatly reduced the number of minorities entering the teaching profession while, simultaneously, demographic trends have greatly increased the number of minority students and the number of predominantly minority schools, particularly in urban areas. Minority teachers are especially needed to address the crisis in educational quality existing in urban communities, particularly in schools attended by students residing in low-income public housing. The Quality Education for Minorities (QEM) Network will conduct a small Working Conference to: focus on the issues, review results of current efforts, and consider potential designs for a comprehensive and collaborative strategy to significantly increase the number of well-prepared minority mathematics and science teachers; and produce and disseminate a set of written guidelines for developing a comprehensive strategy. The 32 participants will include representatives of two- and four-year colleges and universities and of middle and junior high schools serving predominantly minority students bodies; residents of neighboring low-income public housing served by these institutions; non-minority institutions with strong teacher education programs and track records in serving minority students; and professional educational and scientific organizations. ***